Experimental Physics Research Program at Columbia University/Nevis Laboratories: GROUP PROPOSAL

This project has the following components:

1) the US ATLAS detector construction project at the LHC, a 7 TeV on 7 TeV proton-proton collider under construction at the CERN laboratory in Geneva, Switzerland. This machine and its detectors will define the next energy frontier;

2) the D0 experiment now undergoing a major upgrade at the Fermi National Accelerator Laboratory (Fermilab), a 1.8 TeV proton-antiproton collider, an experiment at the current energy frontier;

3)the ZEUS experiment, at the electron-proton collider at DESY in Hamburg, Germany, which probes the structure of the proton with the world's highest energy electron microscope;

4) the NuTeV experiment, that has successfully used a new neutrino beam at Fermilab, to probe the nucleon structure in a manner complementary to electrons;

5) the MiniBoone construction project at Fermilab, which can provide new information on neutrino mass;

6) the HiRes cosmic ray detector project in Dugway, Utah, which will detect cosmic rays at the highest energies yet seen in nature.

7) an innovative "e-bubble" project, which also includes a new education-outreach component through Quarknet.

These activities are supported by the facilities of Columbia's Nevis Laboratories.